Intracellular Trafficking of Plant Peroxisomal Enzymes

Three specific objectives are proposed. The first is to develop an in-vivo plant cell import system for experimentally determining necessary and sufficient C-terminal targeting signals on plant peroxisome proteins. Preliminary data indicate that the GUS gene with an appended S-K-L-COOH and delivered biolistically to cultured tobacco cells, is directed to putative peroxisomes. Histochemical and double indirect immunofluorescent staining suggest this system will be worth pursuing. The second objective is to discover whether the C-terminal tripeptides on plant peroxisome proteins are necessary and/or sufficient for import in vivo into peroxisomes of cultured mammalian cells. In preliminary studies, the C-terminal tripeptide A-R-M of cottonseed isocitrate lyase was found necessary for import into CV-1 monkey kidney and CHO cells. The third objective is to discover the targeting signal(s) necessary and sufficient for import of catalases into peroxisomes of plant and mammalian cells. There are essentially no data elucidating the specific putative targeting signal(s) for any eukaryotic catalase, the basic constitutive enzyme of all peroxisomes. Through unexpected preliminary results, a means was discovered whereby it is possible to distinguish experimentally-imported, native catalase from endogenous peroxisomal catalase. This breakthrough will permit the determination of whether internal signal(s) within C- or N-terminal domains direct catalase to eukaryotic peroxisomes. %%% Compartmentation of enzyme reactions and/or entire metabolic pathways within organelles is essential to the overall coordination of cellular processes and functions of all eukaryotic cells. Understanding biogenesis, differentiation, and function(s) of each organelle is essential before we can comprehend the complex, integrated functions of cells. One of the most active areas of cell biological research which pertains directly to cell regulation and function is intracellular protein trafficking to organelles. The overall goal of the proposed research is to discover and elucidate molecular targeting signals on enzymes which are directed to, and translocated into, plant cell peroxisomes. Peroxisomes occur in virtually all eukaryotic cells and conduct a variety of essential metabolic function(s) related to the cell type in which the peroxisome resides. Recent experimental research on peroxisome targeting signals revealed that a C-terminal tripeptide motif was necessary and sufficient for import into mammalian and yeast peroxisomes. Surveys of published DNA sequences and western blot screens with antisera to a "consensus" tripeptide (S-K-L) indicated that the motif was common for most, but clearly not all, peroxisome enzymes among a variety of eukaryotic organisms. Evidence also exists for some internal and N-terminal cleavable peroxisome signals. A primary reason that experimental data do not exist for targeting signals on any native plant peroxisome enzyme is that import systems, either in vitro or in vivo, have not been developed for plant cells. The aim of this project is to close that informational gap by developing and exploiting an experimentally manipulable in vivo plant peroxisomal import assay system.